Discrete Resource Allocation Among Multiple Agents: A Decision and Information Theoretic Investigation

IRI-9505790 Rao, H. Raghav SUNY-Buffalo $44, 498 - 12 mos This research is in discrete resource allocation among multiple agents in an environment of incomplete information. The problem is considered from the viewpoint of a coordinator. The existence of incomplete information makes the issues involved particularly complex. A decision and information theoretic perspective is being used to study multiple information structures, the nature of information flows, computational costs, and team problem solving. A comparative analysis of various information and communication structures for multi-agent decision-making will be undertaken, based on the concepts of spatial and logical entropy, with all of the likely significant costs included in the analysis. The results are expected to be significant both for the practical use of decision and information theoretic models and for providing insights into harder problems in discrete resource allocation under incomplete information.